REU: Regional, Local and Internal Controls of Raised Bog Development

This study seeks to identify the relative contribution of regional, local and internal factors in controlling the long-term development of raised bog ecosystems in central Sweden. The research will focus on three aspects of bog development: initiation, growth, and landform development. The timing and trajectory of the three processes will be compared with hydrodynamic models of raised bog development that assume a constant environment. Extensive reconstruction of the environmental setting will be derived from paleoecological analysis of a very small lake basin adjacent to the bog that primarily records the local vegetation, water table and environment and a larger lake that is more sensitive to regional changes in vegetation, hydrology and climate. Paleoecological reconstructions from these sites will involve sediment, pollen and macrofossil analysis. The local hydrological setting will be described using a nested piezometer approach. The results will be significant to general studies of community and ecosystem development, to investigations of climate history and to research on the sensitivity of wetland systems to environmental and hydrologic change.